CAREER: Quantum Optics of Correlated Electrons in Cavity Quantum Materials

NONTECHNICAL SUMMARY

This CAREER award supports theoretical research and associated education to investigate how the phases of quantum materials can be controlled and read by light. Some of the most striking properties of quantum materials arise when many electrons act in concert according to the rules of quantum mechanics, leading to phenomena such as superconductivity, where electric current flows without any resistance, or unconventional forms of magnetism that enable key next-generation information processing technologies. A rapidly emerging research frontier seeks to control such properties on demand by coupling quantum materials to light fields that are trapped within tailored electromagnetic resonators or cavities. In such systems, photons, the individual quanta of light within the cavity, interact with electrons and ions in the material to form hybrid quantum phases of light and matter. Recent pioneering experiments have indicated that such cavity quantum materials can indeed exhibit modified properties. However, understanding the role of photons in driving these changes remains a central challenge; conventional experiments can detect the resulting modifications in the material but do not access the quantum state of light itself. New tools and measurement principles are needed.

This project seeks to develop the theoretical foundation for precisely such measurements, based on a simple guiding idea: photons that leak out of the cavity must carry quantum fingerprints of the changes they imprinted on the material. The research is aimed to establish how measuring the quantum properties of light, for example by counting photons one at a time and collecting their statistics, provides direct signatures of cavity-induced changes in superconductors, magnets, and elusive quantum spin liquid phases. It also supplies theoretical design principles for harnessing cavity quantum materials as new classes of quantum devices, from single-photon and entangled-photon sources to terahertz sensors and quantum signal converters - key ingredients for quantum sensing and information processing.

The research is tightly integrated with the development of a new "theoretical quantum materials sandbox", a web-browser-based, open-source, interactive curriculum that bridges undergraduate coursework and research in condensed matter theory with an emphasis on hands-on exploration of quantum physics. Its visualization-driven modules combine short expositions with completable simulations of quantum systems and materials properties, to enable undergraduate students to contribute to research at an early stage, steer them towards independent exploration, and prepare them for a successful career in quantum technologies to further strengthen U.S. leadership in quantum science.

TECHNICAL SUMMARY

This CAREER award supports theoretical research and associated education to investigate how the phases of quantum materials can be controlled and read by light. This project focuses on establishing a theoretical foundation for using quantum-optical techniques to probe and control cavity quantum materials. In this emergent class of quantum systems, excitations in the material are resonantly coupled to the vacuum fluctuations and few-photon states of tightly confined electromagnetic modes of a resonant cavity, to engineer and control the phase of matter and properties of the material. Recent experimental developments have provided first signatures of cavity-altered superconductivity and quantum Hall systems. This project strives to establish a framework for understanding and monitoring such light-induced and cavity quantum-electrodynamical changes to quantum materials via the nonclassical photon statistics of light emitted from the cavity.

The research systematically pursues this goal by generalizing quantum-optical approaches to correlated electron systems, to elucidate signatures of the many-body dynamics of cavity-embedded superconductors, quantum magnets, and topological quantum spin liquids in the quantum statistics and polarization entanglement of photons emitted from the cavity in response to weak driving fields. The work combines the development of dissipative Floquet-cavity many-body approaches and quantum-optical input-output relations for correlated electrons with large-scale computational techniques, to establish these observables as direct witnesses of hybrid light-matter states in cavity-embedded superconductors such as niobium diselenide and van der Waals magnets including nickel phosphorous trisulfide and chromium sulfide bromide, and as probes of fractionalization in quantum spin liquid candidates like the Kitaev material ruthenium trichloride. As a direct corollary, the project aims to provide new design principles for leveraging cooperativity in cavity-embedded correlated quantum materials to engineer efficient quantum light sources, terahertz single-photon sensors, and quantum transducers.